Oceanographic Instrumentation 2004

0402897
Bash
This award to University of Rhode Island's Graduate School of Oceanography provides instrumentation to improve the oceanographic research capabilities of the research vessel Endeavor, an NSF-owned ship operated by URI as part of the University-National Oceanographic Laboratory System research fleet. The fluorometers, PAR sensors, and the pinger-receiver system supported here will replace aging systems with modern ones, maintaining state of the art capability for researchers using the ship. The replacement cable for the undulating towed vehicle, available as a portable system on any UNOLS vessel, is an important upgrade to ensure continued availability of that system. These improvements will be of substantial advantage to marine scientists using R/V Endeavor and other vessels in their research during 2004 and future years.
***